CSU-LSAMP Bridge to the Doctorate at California State University, Northridge (Cohort 9)

California State University (CSU) Louis Stokes Alliance for Minority Participation
(CSU-LSAMP) Bridge to the Doctorate (BD) Program (cohort 9) is a collaborative effort between
the National Science Foundation and California State University institutions to increase
the quality and quantity of underrepresented minorities matriculating to completion of
the doctoral degree in science, technology, engineering and mathematics fields (STEM)
fields. The program at California State University, Northridge prepares students to meet
the challenges of completing doctoral programs of study and for academic careers in
higher education. In addition, the program develops leadership skills necessary for
success in the STEM workforce nationally and internationally.

Integrating research and education, the BD fellows are nurtured over two years as a
cohort community that benefits from a program of academic and personal
development activities as well as social support to sustain their commitment and
success to the terminal Ph.D. STEM degree. Program activities include linkages with
Graduate Education in the Professoriate (AGEP) institutions and other graduate
education programs to advance students in Ph.D. programs.

Twelve students from underrepresented minority populations in STEM fields will
participate in the program at California State University, Northridge during the
2011-2013 academic years. Results from this support broadens the participation of
African-Americans, Hispanics, Native Americans, and Pacific-Islanders in the STEM
pipeline globally. Results from rigorous evaluation of the project adds to the body of
literature in the recruitment and retention of underrepresented minority students in
STEM fields.

The project anticipates that at least 95% of the new participants will complete Master's
degrees, and that at least 90% of these students will earn STEM doctorate degrees.
This project not only targets a student population that might not otherwise pursue
doctoral level training, but also makes a special effort to target STEM disciplines that
have relatively low overall doctorate degree production and the lowest shares of URM
students. In these disciplines (specifically, geological sciences, physics and astronomy,
mathematics, engineering, and computer science), small increases in the number of
doctorates awarded to URM students will have a significant impact on discipline
demographics.

BD project activities include a variety of valued "best practices" for supporting and
advancing LSAMP students. Specifically, the project provides the following:
- rigorous Master’s-level course-work
- a two-year research experience with the guidance of a faculty mentor;
- professional development workshops and activities, including participation in scientific
conferences;
- monthly meetings to monitor student progress,
- networking with other BD Fellows in doctoral programs, and
- provide assistance with graduate school and fellowship applications.